Enlist Micros: Phase III -- Models for Replicating a Teacher-Enhancement Project

In this project, the Biological Sciences Curriculum Study (BSCS) is replicating ENLIST Micros--an implementation model and curriculum that helps science teachers use microcomputers. This 42-month project has two purposes: 1) to develop and evaluate three models to replicate teacher- enhancement programs, and 2) to establish ENLIST Micros at sites throughout the nation. The project uses two models to replicate ENLIST Micros: 1) a trainer-of-trainers model, and a dissemination model. Over three years, 12 sites participated in the trainer-of-trainers model (model 1) and use ENLIST Micros with 750 science teachers. The BSCS staff also consults with people at 12 sites to help another 750 science teachers implement educational computing (model 2). Lastly, dissemination workshops (model 3) present ENLIST Micros to another 100 people, who may work with 2,000 science teachers. As a result, the project is establishing regional sites that continue ENLIST Micros without outside support. Those sites are to improve the use of microcomputers by more than 3,000 science teachers. Furthermore, we are determining the cost effectiveness of the two models for disseminating teacher- enhancement projects. An amount equivalent to nearly 193% of the NSF award is being contributed as cost-sharing.